Research Initiation: Assessing the Special Role of Location Problems in Combinatorial Optimization

This project is concerned with the transfer of the project on the role of location problems in combinatorial optimization from Princeton University to the State University of New York at Buffalo. A novel algorithm for the simple plant location problem is implemented and tested. It is shown that the best results are achieved using an initial solution obtained by a greedy heuristic.